Probing Nucleon Structure and the Nucleon-Nucleon Force

0072226
Hicks
The general goal of our research is to study the structure of the
nucleon and the nucleon resonances in terms of quarks and gluons.
The fundamental interaction between quarks and gluons is the theory
of quantum chromodynamics (QCD), which is generally accepted to be
the correct underlying theory of the strong force. However, practical
calculations using QCD are extremely difficult at energies near the
mass of the nucleon. Hence, experimental data is needed to guide
theoretical models of nucleon structure. In addition, we are
interested in experimental tests of charge symmetry in the strong interaction between two nucleons.
Our research is centered on experimental work at the Thomas Jefferson National Accelerator Facility (TJNAF) and the Laser-Electron Gamma Source (LEGS) at Brookhaven National Laboratory. Both of these
facilities provide electron or photon beams of sufficient energy
to excite the nucleon into intermediate resonances which then decay.
In Hall B at TJNAF, our group is focussed on measurements of kaons
which are largely due to decay of various nucleon resonances. In
Hall C at TJNAF, one member of our group is working on a measurement
of the electric and magnetic form factor of the neutron. At LEGS,
two members of our group are working on measurements of pions
produced with polarized beams and targets, which test theoretical
sum rules (related to static properties of the nucleon). All three
experiments will provide guidance to QCD-inspired theoretical work.